Building an Electronic Scientific Community

9319844 Schatz This award will support the distribution and continued development of the Worm Community System (WCS). This is an electronic community system, or digital library, containing the knowledge of a scientific community and a software environment to enable interaction with this knowledge across wide-area networks. In particular, WCS contains the formal and informal data and literature of the community of molecular biologists who study the nematode work C. elegans. The library collection of WCS enables researchers to search for desired items, navigate links between related items, and make personal annotations. This proposal is being jointly supported by the Information Technology and Organizations program of the Directorate for Computer and Information Science and Engineering and by the Database Activities in the Biological Sciences program. ***